Mathematical Sciences: Research in Differential Geometry

The principal investigator will study several problems in differential geometry as applied to the theory of minimal surfaces. One involves an approach to proving the isometric inequality for minimal surfaces. The second involves applying generalized Morse index theory to obtain a sharp estimate for the index of a minimal surface. And he will analyze the problem of globally reflecting a constant mean curvature surface which meets a plane at a constant angle. Two-dimensional minimal surfaces are mathematical models of soap films. These must have zero mean curvature. The surface of a saddle has zero mean curvature if at each point the amount of curvature in the upward direction exactly cancels the amount in the downward direction. The principal investigator will study various problems concerning the number of tubes such minimal surfaces may have.